NSF Young Investigator Award: High Performance Single Chip VLSI Processors

Farrens The research is to investigate various configurations of decoupled architectures and to extend the concept into the field of parallel processing. It is anticipated that, with several decoupled processors communicating via architectural queues called Multiple Instruction Stream Computer (MISC), it will function as a type of dynamic superscalar processor, providing significant performance gains. The MISC architecture uses multiple asynchronous processing elements to separate a program into streams that can be executed in parallel, and integrates a conflict-free message passing system into the lowest level of the processor design to facilitate low latency intra-MISC communication. This approach allows for increased machine parallelism with minimal code expansion, and provides an alternative approach to single instruction stream multi-issue machines such as superscalars and VLIWs. The relationship between optimal processor configuration and transistor count is also being investigated. The goal is to define the design points at which a change to multiple processors becomes advantageous.